The Thermal Evolution of Contact Aureoles: Conduction Modeling and Petrologic Studies

The principal investigator will study the thermal evolution of aureoles associated with contact metamorphic zones, using petrologic and modelling tools. This will provide important clues regarding the type(s) of heat transport operating around such bodies and will give geologists critical information needed to interpert the geologic histories of these zones.